Metathesis: Database and Theory Development Project

9809732
Hume

The focus of this project is on metathesis, the process whereby sounds
appear to switch positions with one another. Thus, in a string of
sounds where we would expect the linear ordering of two sounds to be
...xy..., we find instead ...yx.... While less common than processes
such as assimilation or sound deletion, regular metathesis nonetheless
occurs as a regular phonological process in synchronic systems cross-
linguistically, thus countering the commonly-held view of metathesis as
sporadic and irregular. Moreover, preliminary research suggests that by
taking into account considerations of perceptual ease, a unified account
of the motivation behind a wide range of metatheses is possible.
However, basic knowledge is lacking concerning the full range of
metatheses that are possible in synchronic systems, under what
conditions metathesis applies, whether perceptual factors are able to
account for all cases, and how metathesis interacts with other processes
affecting sound structure. This information is critical to the
development of a predictive theory of metathesis. It is also of crucial
importance for the advancement of phonological theory since without a
clear understanding of the fundamental phonological processes possible
in human language, developing an explanatory theory of sound systems
is impossible. The goal of this project is thus two-fold: first, to compile
a comprehensive database of attested metathesis cases; and second, to
develop a predictive and constrained theory of metathesis.